2012 Geochemistry of Mineral Deposits GRC

Intellectual Merit. Mineral resources have always been an essential foundation of human civilization.
Despite uncertain economic times for much of the world, prices for critical minerals continue to
remain high as they are depleted by mining and as discovery of new resources becomes
increasingly difficult. Even with greater recycling and substitution, increasing demand requires
that metals and other rare elements will continue to be mined from ore deposits. Such deposits
can only be utilized in an environmentally responsible manner if the ore elements are highly
enriched by natural chemical and physical processes. These processes operate over a great range
of spatial and temporal scales from the Earth’s interior to its surface, and from the earliest
geological records of the planet to the present day. The 2012 Gordon Research Conference
(GRC) on the Geochemistry of Mineral Deposits presents a forum to present and discuss new
data and ideas on processes that control the formation and location of a wide range of mineral
deposits, including precious metals, base metals, and other critical elements. Sessions will
include lithospheric controls on mineral deposits, magmatic and hydrothermal processes that
partition metals among various mineral and fluid phases, active hydrothermal systems as
analogues to mineral deposits, and dynamic processes involved in ore genesis, including
variations the fluxes and chemistry of magma and volatiles, tectonic triggers to regional ore
formation, and the physical hydrogeology of hydrothermal systems. Evening sessions will focus
on puzzling, controversial and commonly overlooked ore systems. These systems include the
African Copper Belt in Zambia and the Democratic Republic of Congo, iron oxide-copper-gold
systems, and systems that form rare earth elements, which have critical high-technology and
environmental applications. Another evening session focuses on the distal expressions of large
ore systems, which is of interest to private industry and government agencies involved in
exploration and mineral assessments, which are important to land use decisions.

Broader Impacts. GRCs provide a unique opportunity for scientists from government, academia and
industry from all over the world to meet in an informal setting. GRCs provide a level of intimacy
not experienced in other conferences. Attendance is limited to 160 participants, emphasis is on
discussion, and there are no concurrent sessions. Few conferences bring together such a wide
range of scientists of both experience and focus, which ranges from pure, process-related
research to applied research. Not all the participants specialize in ore deposits. Researchers
focused on igneous petrology, aqueous and isotope geochemistry, fluid flow, and active
hydrothermal systems are speaking and leading sessions. With such an intimate setting, the
participants have little choice but to interact with each other during the conference. Such
interactions commonly lead to unforeseen collaborations. Funds will be provided to students,
post-docs, and other young investigators to assist them in attending in the meeting, thus affording
them the opportunity to network with recognized experts in both academia and industry and have
a say in the future directions of mineral deposit research.